SAFARI-2000: Fine Particulate Organic Material in Southern Africa

The accurate estimation of the effects of fine particles on global radiative balance is dependent on an understanding of the chemical composition of fine particles as a function of size. The objective of this study is to determine the contribution of semi-volatile material and other species to the composition of fine particles from biogenic emissions, biomass burning, and anthropogenic sources in the Southern Africa region during the SAFARI 2000 program, and the elucidation of any changes in the composition of this fine particulate material as it is transported out over the Atlantic Ocean. Aerosol samples will be collected on the University of Washington Convair-580 aircraft during the SAFARI 2000 flights in collaboration with Dr. Hobbs (U. Washington) and Dr. Novakov (Lawrence Berkeley National Laboratory). A diffusion denuder sampler suitable for airborne deployment will be used and the collected material analyzed for mass, sulfate, nitrate, and carbonaceous material.